Science Connections Project

9618924 Gerard F. Consuegra The Science Connections Project is a five-year professional development program for 320 middle schools science teachers in the county system. The goal is to extend the revised elementary science program into middle schools and to provide the professional development at the middle school level. The proposed project, in cooperation with the University of Maryland, The American Physical Society, and the National Institutes of Health will provide intensive training for middle school science teachers, Grades 6-8, so that students who were taught by elementary teachers participating in the NSF funded elementary teacher enhancement project will continue to develop science literacy skills and knowledge using inquiry-based and constructivist-based learning. The middle school science teachers will receive professional development in science content; and instructional pedagogy which will include constructivist learning, cooperative learning, and inquiry-based teaching; performance teaching and assessment; and technology applications. An action research model will be used to promote permanent and ongoing change in teachers' professional development.